Rate of Persistence of Responding

Abstract Shull 9511934 If an individual is obtaining some type of reward by responding, what happens if additional rewards are freely given, regardless of what the individual is doing? One obvious effect is that the rate of the operant response declines. But free rewards can also enhance the persistence of the response--at least that is what research with pigeons has demonstrated. When conditions are made less favorable for responding (e.g., when the subject is satiated or when the delivery of all rewards in halted), responding will persist longer if additional free rewards had been provided in the context than if they had not been. An implication is that the rate and the persistence of operant behavior are not aspects of a single process like response strength but are, instead, independent properties of behavior controlled by different classes of variables. The rate of operant behavior (i.e., the inclination to engage in the behavior) depends on the strength of the operant contingency-- that is, on the proportion of the total reinforcers that are obtained by the particular response. Persistence appears to depend on the degree to which the context in which the response occurs signals an increase or a decrease in the rate of reinforcers regardless of whether or not the response produces those reinforcers. One interpretation of the persistence effect is that the freely delivered rewards make the context in which they occur more arousing or emotionally exciting through a Pavlovian conditioning process. The emotional excitement, in turn, feeds into the operant behavior making it relatively more persistent in the face of worsening conditions. A possible practical implication is that one can enhance the persistence of a response by presenting reinforcers freely in the context in which the response occurs (e.g., in a classroom) even though doing so will likely reduce the rate of the response. It is possible, however, that the rate and persistence of behavior appear to be independent properties only because response rate in our usual experimental preparations is a mixture of different kinds of behavioral events. The proposal provides a formal development of this possibility, based on the assumption that response rate, as usually measured, is comprised of initiations of activity and performance during the activity. The rate of initiations corresponds most closely to the everyday sense of an inclination to engage in an activity. An implication is that the rate and persistence of the usual measure of response rate can appear independent even though the rate and persistence of initiations are correlated. The proposed experiments are intended to examine the effects of additional free reinforcers on the rate and persistence of initiations. Several preparations are described that should provide a measure approximating initiation rate, as distinct from the composite rate. The important question is whether the rate and persistence of initiation rates covary as a function of the operant contingency or are independent. The subjects will be rats. The response will be lever pressing for food reinforcers.